Mathematical Sciences Computing Research Environments

The Department of Statistical Science at Southern Methodist University will purchase a departmental file server, a graphics workstation and related UNIX equipment which will be dedicated to the support of research in the mathematical sciences. The equipment will be used for several research projects, including construction and analysis of phylogenies based on DNA sequence data, statistical analysis of data related to global temperature variation, geometrical approaches to ranked data, and bandwidth selection in nonparametric function estimation.